NSF-CGP Fellowship: The Influence of Interfacial Chemistry on Precipitate Growth and Stability

9600383 Reynolds This proposal supports the collaboration of Dr. William Reynolds of the Department of Materials Science and Engineering at Virginia Tech and Dr. Kazuhiro Hono of the Computational Materials Science Division of the National Research Institute for Metals (NRIM). Project funding will enable Dr. Reynolds to spend one year in Japan, resident at NRIM, in order to study the interfacial chemistry of precipitates in metals using atom probe/field ion microscopy. Dr. Reynolds has previously studied thermodynamic and crystallographic aspects of phase transformations in metals. Dr. Hono has applied atom probe/field ion microscopy to study the chemistry of aluminum alloys, ferrous alloys, and magnetic materials at the atomic scale. Dr. Reynolds will combine his expertise with that of Dr. Hono to study the influence of atomic-scale chemistry on precipitate growth and stability. This proposal brings together research scientists from two countries working in the area of physical metallurgy and phase transformations. The U.S. scientist will have the opportunity to become familiar with research techniques, equipment, and facilities at NRIM while contributing to the overall research effort. Therefore, this proposal fulfills the objectives of the Program in its exchange and transfer of scientific knowledge through an international collaboration. ***